Nonlinear and Stochastic Descriptor Varivable Systems

This research concerns descriptor variable systems. Such systems arise in a variety of engineering areas, and this framework is becoming more common because of the increase in computing capability and the emphasis on flexibility in problem formulation and modeling. Two major topics are proposed for research. The first is for the continuation of the proposer's previous work on the theory and application of nonlinear descriptor systems. This work focuses primarily on the development of general algorithms for solving such systems. These algorithms would be important for solving nonlinear descriptor models, but also for the solution of analytical problems arising in optimal control, dynamic games, and dynamic equilibria. The other major topic proposed is the study of stochastic descriptor variable systems. This area is important because stochastic systems are often formulated in descriptor variable form. In addition problems of estimation, smoothing, and stochastic equilibria all lead to stochastic descriptor variable systems. A general theory would provide unity and new algorithms for these problems.